REU Site: A Cyberlinked Program in Computational Biomolecular Structure & Design

This REU Site award to Johns Hopkins University, located in Baltimore, MD, will support the training of 12 students for 10 weeks during the summers of 2020 - 2022. Research is conducted in various labs of the Rosetta Commons (http://www.rosettacommons.org) located throughout the United States and abroad. It is anticipated that a total of 36 students, primarily from schools with limited research opportunities or are from an under-represented group, will be trained in the program. Students will learn how interdisciplinary, collaborative research is conducted, and all will present their work at scientific conferences. Upon completion of the REU program, students will gain an understanding of how to investigate biological problems from a structural perspective; experience computational molecular design; acquire a solid foundation in research methodologies in biochemistry, biophysics, computational biology, and molecular engineering; gain skills to collaborate with other scientists and engineers in other laboratories globally; and gain a deeper appreciation for the contributions that improved technology in these areas can make to society. Assessment of the program will be done thru the SALG URSSA tool. Students will be tracked after the program in order to determine their career paths.

The research uses computational methods for prediction of the structure of biomolecules (which underlies their behavior and function) and the design of new biomolecules (important for materials, nanotechnology, and biotechnology). Example research projects include “Antibody engineering by deep learning”, “Design of protein-based small molecule sensor/actuators”, and “Modeling and designing RNA at high resolution”. The training program consists of a 1-week bootcamp where students learn computer coding and structural biology, 8 weeks of research in distributed labs (across the US and abroad), and a final week together at the annual Rosetta Conference. During the research period, students will complete an independent research project under the mentorship of a host lab, participate in weekly virtual journal clubs, prepare research proposals, and prepare a poster for presentation at the conference. All participants complete the Responsible Conduct of Research course. More information about the program is available at http://www.rosettacommons.org/intern, or by contacting the PI (Dr. Jeffrey J. Gray at [email]) or the program administrator (Ms. Camille Mathis at [email]).